Minimal surfaces and geometric analysis

MS-0405695
Title: Minimal surfaces and geometric analysis
PI: William P. Minicozzi, Johns Hopkins University

ABSTRACT

We will continue our investigations on minimal surfaces and related
areas of geometric analysis, including geometric evolution equations such as the mean
curvature and Ricci flow, and on function theory. Some of our
main results for minimal surfaces so far - the lamination theorem
and the one-sided curvature estimate - are for properly embedded
minimal disks. Recent years have seen breakthroughs on many long--standing
problems in the theory of minimal surfaces, with important
contributions from many mathematicians. The lamination theorem
and the one-sided curvature estimate described here have played a
key role and have been used by many people. Two of the important new
directions are removing the assumption of properness and considering
minimal surfaces with more general topological types. These results will
have important implications.

The field of minimal surfaces dates back to early work of Euler in
1744 and Lagrange in 1762 and has remained a vibrant area of research
for the last 250 years. Minimal surfaces appear frequently throughout science,
dating back at least to the soap film experiments of the Belgian physicist Plateau
in the first half of the nineteenth century. Their mathematical impact has been
significant and has led to developments in geometry, topology, and partial differential
equations. The subject has seen major developments recently, including answers
to some long-standing open questions and a rather complete picture for properly
embedded minimal disks (such as the helicoid which was originally discovered in
1776). However, much less is known when these assumptions are removed;
understanding this is a key part of our research and the answers are likely
to lead to further developments.